Refined symmetric functions and affine analogs in combinatorics

This proposal is to explore a connection between the type-A affine
Weyl group and symmetric functions called k-Schur functions. The
k-Schur functions arose in a study of the Macdonald polynomial basis,
a basis for the symmetric function space that plays an important role
in geometry, representation theory, and physics. As the k-Schur
functions were investigated more deeply, it came to light that these
functions may not only offer an approach to difficult problems in the
theory of Macdonald polynomials, but also provide a fundamental
basis for a subspace of the symmetric space. A wealth of beautiful
combinatorial conjectures that extend and refine classical ideas in
symmetric function theory came out of the study of k-Schur functions.
This proposal is to work on these conjectures and to further investigate
the k-Schur functions. For example, recent work with the k-Schur
functions suggests a connection between the Macdonald polynomials and
the affine symmetric group.

Combinatorics is a vast area of mathematics loosely described as
the study of counting collections of objects that satisfy specified
criteria. As such, combinatorics plays an integral role in
the development of many fields, and combinatorial methods are employed
by scientists ranging from biologists to theoretical physicists.
The PI seeks to understand a natural refinement for the beautiful
combinatorics that arises in the theory of symmetric functions -
a classical part of mathematics with a wide variety of applications in
fields including physics, engineering, and computer science.